Anion Exchange Mechanisms in Bacteria

This project concerns OxlT, a novel transport protein in Oxalobacter formigenes, a gram-negative anaerobic bacterium. OxlT catalyzes the exchange of external divalent oxalate for internal monovalent formate. This electrogenic exchange, along with proton consumption during intracellular decarboxylation, constitutes an indirect proton pump that generates a proton-motive force as the cell extracts "metabolic energy" from oxalate. It appears that this pattern is replicated by other reactions in other cells, and that indirect proton pumps may be common in microbiology. To understand this event at the molecular level, we propose to study OxlT, the antiport protein. Presently, we have methods to purify and reconstitute OxlT, and we have raised anti-OxlT polyclonal antibodies that will aid us in cloning the oxlT gene. With purified protein and a cloned gene, we will raise peptide-specific antibodies and construct gene fusions to aid in the determination of transport protein structure. Site-directed mutagenesis will be used to further characterize the structure/function properties of the enzyme together with biochemical and biophysical methods to determine the minimal functional unit (monomeric or dimeric), .- helical content and the binding properties of the protein. %%% We have shown that the microorganism, Oxalobacter formigenes, has a novel mechanism to harvest energy from its environment. This cell uses a specific membrane protein, termed OxlT, to bring divalent oxalate molecules into the cell in exchange for monovalent formate, which is simultaneously pumped out of the cell. The formate, which is required to complete the exchange cycle is generated by degradation of oxalate after the molecule is brought into the cell. The asymmetric exchange of negatively charged ions results in the formation of a membrane potential across the cell membrane, that the cell can then use to make additional energy and grow. At the heart of this new mechanism of energy formation is the membrane protein, OxlT. We will use the tools of molecular biology (cloning, mutagenesis), immunology (specific antibodies). biochemistry (purification and reconstitution) and biophysics (spectroscopy) to study the structural and functional properties of the enzyme to help us understand how such an unusual membrane "pump" protein, such as this one, operates to provide extra energy for the cells.